Enhancement of Faculty Design Capabilities

"Enhancement of Faculty Design Capabilities" proposes a series of design education workshops and a National Conference on Engineering Design and Design Education. The two-week summer workshops, to be held in 1996 and 1997 at Southern Methodist University, are offered for all engineering disciplines and faculty that intend to or are presently teaching design in engineering courses to undergraduate students. The workshops strive to address needs of faculty from two-year and four-year institutions who teach non-design, or engineering science, courses and desire to include design into the course work. Topics addressed in the workshops include design methodologies, design content, design constraints, design tools, and teaching design through a multifaceted format using lectures, laboratory sessions, discussion sessions, and industrial tours. Participants will develop a design plan, design problems, design projects, and design case studies while working individually, in single-discipline teams, and in multi-discipline teams. Faculty leaving the workshop will have a design plan, design materials for courses, a plan of implementation at the home institution, ald a network of design faculty with whom to interact. These workshops will guide faculty to a different way of thinking, a freshened approach to processes and procedures of design synthesis. It is anticipated that the National Conference on Engineering Design and Design Education to be held in Spring, 1997 will mark the creation of a continuing forum for exchange of ideas between engineers and educators on engineering design and design education which can be continued on a two-year cycle.